Multimedia Teaching Laboratory for Undergraduate Computer Science Program

9452209 Marovac The objective of this project is to expand the multimedia capabilities of our Multimedia and Software Engineering Laboratory (MM&SE). Currently, our laboratory has one SUN IPC workstation, four IBM-PS2 Model 80 PCs based on 80386 MPU, and an IBM AT with a color monitor for high resolution graphics. The laboratory is used for class work and research in undergraduate courses that cover multimedia, graphical user interface environments, computer graphics, and software engineering and a graduate course in software engineering. However, for graphical interface environments, computer graphics and software engineering courses we occasionally also use departmental Sun 4/110 workstations that are shared with a number of other courses. The improvement through this project consists of an addition of 6 computers, 3 Silicon Graphics INDY multimedia workstations and 3 IBM multimedia 9557 DV PCs. All computers will be equipped with 16 bit audio, hardware supported moving video and ISDN interfaces. This project primarily impacts our multimedia course and our undergraduate research projects in multimedia. The equipment is used in teaching full multimedia including high quality audio and moving video. However, the project significantly affects our undergraduate courses in user interface environments, raster graphics and software engineering. The equipment is also used for a number of undergraduate research projects involving development of multimedia tools supporting other computer creative activities, e.g. a group development environment in which the students can fully communicate with each other through audio and real time video while working as a team on software engineering projects.